Kuroshio Transport Study at 24 Degres North: Analysis of Results from PCM-1 Moored Current Meter

This work will use current meter and hydrographic data from the
WOCE PCM-1 array in the northwestern N. Pacific, together with
sea-level, altimeter, and WOCE hydrographic data:
(a) to analyse the structure and variability of Kuroshio volume and
heat transports, (b) to estimate the meridional heat flux in the
N. Pacific at 24N, (c) to examine the alongstream variation of the
Kuroshio by comparing PCM-1 data with data from the PCM-5 mooring
array, further downstream, and (d) to make a comparison with the
structure and variability of Kuroshio transport seen in numerical
models.